Simulation of the National Economy for Macroeconomics Classes

This project provides a computer lab for students which will enable them to experience the impact on the national economy of various changes in national policy. The Department of Economics at the University of Wisconsin Oshkosh is extending its strategy of providing computer simulations of economics in its core courses to its macro principles and intermediate macro theory sections. Using a high quality spreadsheet and the fine resolution of the Apple Macintosh computer, student imputed changes impact the simulated economy. The software and department-developed templates provide an easy way for students to record both the numerical impact and graphic illustration of their policy changes.